Multiparadigm Declarative Program

9224005 Meseguer This research will extend the scope of declarative programming to support reactive system applications (e.g., communications software, operating systems, robotics) and concurrent object-oriented systems. The research will also develop a unified logical framework as the semantics basis for a multiparadigm declarative programming language unifying functional, relational, and concurrent object- oriented programming, and having powerful mechanisms for programming-in-the-large. The multiparadigm language will be implemented by extending the current implementation of the OBJ3 language which will be included as a functional sub language. The methods used to design the multiparadigm language are based on an axiomatic theory of general logics that permits combining logics supporting different styles of declarative programming by means of mappings preserving the structure of these logics. Examples of such mappings include sub logic inclusions and translations between logics. The results of this research will provide new methods for specifying, programming and reasoning about reactive and concurrent object-oriented systems at a high level of abstraction, and for reusing such systems to increase software productivity, as well as a language implementation supporting these methods. The results will also contribute to the mathematical foundations of concurrent object- oriented programming. ***